SBIR Phase I: Automating Linkage and Association Based Gene Mapping Analyses through Knowledge Acquisition

This Small Business Innovation Research (SBIR) Phase I Project proposes to investigate the application of an automatic inference engine called "Discovery Machine" to the domain of gene mapping. Discovery Machine is a set of knowledge acquisition tools that aid experts in solving problems over large amounts data. The proposed enhancements to the Discovery Machine will allow genetics experts to model their own strategies for interpreting the information needed to map genes. The development of bioinformatics tools is aimed at researchers who wish to better leverage computing power to solve problems across large sets of data but cannot easily write software to enable their efforts.

The commercial application of this project is in the area of bioinformatics.